Scripps Institution of Oceanography - Oceanographic Instrumentation

A request is made to fund Oceanographic Instrumentation for the R/V Roger Revelle, a 273’ general purpose Global vessel. The vessel is operated by Scripps Institution of Oceanography as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. R/V Roger Revelle is a Global vessel owned by the Navy. She supports multidisciplinary oceanographic research in all the world’s ocean basins.

In 2018, REVELLE completed 262 days, 181 (69%) of which were for NSF. In 2019, Revelle is currently scheduled with 86 days, 72 (84%) of which are for NSF. The reason there are so few days is that Revelle plans to spend most of the year in drydock undergoing a mid-life refit. Much of the instrumentation proposed her would be installed during this period. The prioritized Instrumentation request includes the following:

Portable Multi Channel Seismic System Components $679,560
1-meter MOCNESS Nets, shared-use infrastructure $20,972
Virtual Desktop Infrastructure (VDI) R/V Roger Revelle $214,920
Network Cabling Refurbishment R/V Roger Revelle $284,014
Laboratory Infrastructure Refurbishment R/V Roger Revelle $87,136
Acoustic Doppler Current Profiler Array Replacement $53,158
Mooring Release/Acoustic Modem $59,488
$1,399,248

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 13-589). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.